U.S.-France (INRIA) Cooperative Research: Numerical Solutionor Partial Differential Equations in Engineering Problems

This award will support ongoing collaborative research in applied mathematics between two groups of U.S. and French scientists, based at the University of Maryland and at the French National Institute for Information Science and Automation (INRIA). The U.S. group will be led by Professor Ivo Babuska; on the French side the project will be led by Dr. Michel Bernadou, INRIA - Rocquencourt. The University of Maryland and INRIA have been working for many years on finite element methods for the numerical solution of partial differential equations that arise in engineering problems. INRIA has developed the software system MODULEF; new theoretical approaches and related computer implementations have been developed at the University of Maryland. Hence the French and U.S. groups complement each other. The major objectives of the proposed collaboration are: a) To develop a scientific framework characterizing the relevant properties of existing methods which can be used for the assessment of their effectiveness in practical computations, and to design new effective methods. b) To assess the accuracy of computed results and the design of adaptive procedures. c) To develop new mathematical formulations of important engineering problems, with special attention given to problems for which the available information (input data) has intrinsic uncertainties. This research joins two groups of outstanding U.S. and French applied mathematicians. INRIA is widely recognized for its concentration of expertise in computer research, automation, mathematics and scientific computing; it provides an excellent combination of fundamental research with industrial collaboration in these areas. This award will allow fruitful collaboration to continue in the important area of finite element theory and applications.